CISE Research Instrumentation

A data-glove system will be provided for researchers at the University of Utah for research in the Department of Computer Science. This equipment is provided under the Instrumentation Grants for Research in Computer and Information Science and Engineering program. The research for which the equipment is to be used will be in the areas of computer animation of human figures, and computer-aided design and manufacturing.